New Vistas in Transatlantic Science and Technology Cooperation; June 20-22, 1999; Stuttgart, Germany

9909254
Smith

This grant provides partial travel support for participants to a conference entitled, "New Vistas in Transatlantic Science and Technology Cooperation" held June 21-22, 1999, in Stuttgart, Germany, to promote cooperation between the European Union and the United States of America in the framework of the EC-US Science and Technology Cooperation Agreement, which was launched in October 1998 for an initial five-year period. It is funded through the Office of Multidisciplinary Activities of the Directorate for Mathematical and Physical Sciences.